Size and Proximity Effects in 3He and the Properties of Materials at Low Temperatures

Properties of materials are studied in the microkelvin to millikelvin regime. The properties of 3He confined in porous materials and in mixtures with 4He are investigated. Internal friction in silicon as well as new techniques in refrigeration and thermometry are tested.